International Engineering Research Technical Briefing via Satellite Delivery

In 1987, the National Academy of Engineering issued a report entitled "Strengthening U.S. Engineering through International Cooperation." The report emphasizes that technology in the United States tends to flow out of the country to scientists and engineers abroad, but that few mechanisms exist to enhance the flow of technology from foreign countries to the U.S. engineering community. The NAE report recommends that NSF, NAE, and other organizations "organize and fund lecture tours by distinguished foreign experts to present reviews of, and perspectives on, their nations' developments in engineering and technology to U.S. universities and industry." Oklahoma State University proposes to organize these lectures, but plans to bring the foreign experts to the television studios at OSU and televise the live lectures to universities and industry throughout the United States. It is proposed that each lecture be approximately one to two hours in length followed by a telephone call-in question-and-answer period of approximately one hour. OSU is supported in this proposal by the National Technological University and its 200+ Ku-band receiving sites located in U.S. industry and government facilities. Also, OSU proposes to advertise the lectures to some 600+ U.S. universities that presently have satellite receiving equipment and that regularly organize teleconference events. The OSU proposes to organize and produce one briefing in Phase 1 and then continue with five additional briefings in Phase 2. The results of Phase 1 will be reviewed on the basis of technical merit; i.e., topic interest and importance, qualifications of the speaker, and overall presentation. A VHS cassette of the Phase 1 lecture will be used for evaluation by selected users. Phase 2, which provides for five additional briefings will be awarded based on obtaining satisfactory results from PHase 1 and the availability of funding to continue Phase 2.